U.S.-France Cooperative Research: Interaction Potentials between Alkali Atoms-from the Bound Molecule to the Dissociation Limit

0003744
Lyyra

This two-year award for U.S.-France collaboration involves A. Marjatta Lyyra and her group at Temple University and Michel Broyer and Amanda Ross at the University of Lyon I. They propose to conduct experimental and theoretical studies of electronic states of alkali atoms and dimers using a new photoassociation technique and high resolution multiphon spectroscopy. The Temple University group brings to this collaboration experimental expertise in high frequency resolution and triple resonance spectroscopy. This is complemented by the French group's theoretical expertise and their precise techniques in Fourier Transform Spectrometry and ab initio and long-range calculations.

This award represents the U.S. side of a joint proposal to the NSF and the French National Center for Scientific Research (CNRS). NSF will cover travel funds and living expenses for the U.S. investigator and graduate students. CNRS will support the visits of the French researchers to the United States. The collaboration will advance understanding of the behavior of molecular interactions and future experiments in cold atoms. mechanical properties of magnets and the approach for tailoring sample properties for application in magnetic recording media.